Postdoctoral Research Fellowships in Chemistry

Dr. Daryl R. Sauer has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Sauer's doctoral degree was from the University of South Florida under the supervision of Professor Stewart Schneller. Dr. Sauer intends to continue research at Ohio State University under the sponsorship of Professor Leo Paquette. Dr. Sauer's area of postdoctoral training and research will be the design and synthesis of architecturally novel compounds of theoretical interest, development of new synthetic methodology, and the synthesis of natural and unnatural molecules which possess biological activity. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.Ds and attract them into meaningful careers in contemporary chemical research and teaching.